Families of L-functions and automorphic forms

The PI plans to investigate a variety of problems in the
analytic theory of automorphic forms, especially problems
concerning higher rank groups such as the general linear
group of degree 3 and higher. In particular, the PI will
study some problems concerning the analytic study of
automorphic forms restricted to small subsets, especially
period integrals. Other components of the research include
the study of mean values of L-functions including the Riemann
zeta function.

One of the goals of analytic number theory is to understand
the statistical properties of algebraic objects. For instance,
one can ask what is the probability that a randomly chosen
large number is a prime. It is very fortunate for modern
cryptography that it is easy to find large primes. Cryptography
is a crucial tool in banking, commerce, and of course national
security. Some of our best knowledge on the prime numbers
comes from properties of the Riemann zeta function, the
simplest L-function. Many other fascinating algebraic
and geometric objects are encoded in other types of L-functions.
The PI plans to study many of the statistical properties of
these L-functions.